eBlocks: Embedded System Building Blocks

Vahid
CCR-0322026

eBlocks: Embedded Systems Building Blocks

This project develops a set of building blocks that can be used by people,
having no special training, to build simple but useful embedded
computing systems. The types of systems are those that monitor switches
and sensors (motion, light, temperature, etc.) and control basic outputs,
like lights, buzzers, electric relays, and simple actuators. The project
defines an intuitive set of eBlocks, incorporates compute intelligence into
previously passive sensors and outputs, defines the communication and
coordination protocols between eblocks, and develops methods to assist
people in creating and configuring eBlock systems. The result is a set of
eBlocks that can be connected into systems by nearly anybody to perform
useful tasks. Example systems include detecting a garage door left open at
night, notifying a deaf person of noise, turning on a fan after a certain
temperature is reached in a scientific experiment, finding commonly lost
items, and tallying votes anonymously in a classroom or meeting.
The broader impacts not only involve improved control over home, office,
store, school, and other environments, but also the improved support of
research in a diversity of other scientific disciplines relying on sensors
and control, as well as use in design courses in colleges and high schools.